Mathematical Sciences Computing Research Environment

The department of mathematical sciences at Worcester Polytechnic Institute will purchase computer equipment which will be dedicated to support research in the mathematical sciences. The equipment will be used for several research projects. In particular: 1) CFD and turbulence. 2) Clear Air turbulence. 3) The design of high performance parachutes. 4) Multicriteria Optimal Shape Design.